Molecular Evolution: Integration of Theory and Practice

9451845 O de Sa This project creates a new course to provide integrated training in the theory and practice of Molecular Evolution to science majors using a strong "hands-on" approach. Students select and carry on experiments involving a wide range of molecular techniques. The class format emphasizes two components: Inquiry and "Know-how." The first emphasizes exercises to develop communication and critical thinking skills through evaluation and analysis of data, experimental designs, and written assignments. The second component focuses on four key approaches to generate productive and Ph.D. bound science graduates: Collaborative Inquiry: Student teams learn to use different molecular methodologies by pursuing their own experiments; Core Molecular Methodologies: Students learn the applications and advantages of each molecular technique and acquire the needed technological competence; Critical Thinking: The experimental data obtained provides an excellent opportunity for students to critically analyze the experimental designs and to develop their own research questions and proposals; Communication: Students interpret and explain their experimental results, which reinforces the development of their communication skills. The new RC24 Superspeed centrifuge enables the students to carry out many of the steps necessary for manipulating genes and vectors for cloning purposes.